Doctoral Dissertation Research: Refugees and Citizens: Political Conflict and Social Organization

PI and co-PI: Loic Wacquant and Silvia Pasquetti

Institution: University of California, Berkeley

Title: Doctoral Dissertation Research: Refugees and Citizens: Subaltern Politics and Social Organization in West Bank Camps and Israeli Cities

0826614

Abstract

This dissertation investigates how spatial constraints and legal statuses combine to shape social organization and collective self-identification within subproletarian populations. This dissertation is a comparative ethnographic study of subaltern politics under two different spatial-legal contexts: a Palestinian refugee camp in the West Bank (Jalazon camp) and an Israeli Arab minority neighborhood (in the Israeli city of Lod). A main research question animates this research: What form of politics prevails in West Bank refugee camps? How does it differ from local politics in Arab minority neighborhoods inside Israel? Why does it differ? A main hypothesis guides this research: despite many similarities in class, religious and cultural terms, camp dwellers and urban minorities radically differ in their collective organizing and their collective self-identification. This overarching hypothesis can be divided into several hypotheses: H1) West Bank camps have more in-site associations and centers than Israeli Arab urban neighborhoods; H2) camp associations and centers provide a high level of internal organization but re-produce internal divisions as they tend to be captured by political factions or extended families; H3) camp dwellers perceive themselves as national actors engaged into a collective struggle for recognition; H4) Palestinian urban minorities remain at the margins of the association-building process around which Arab nationalist elites inside Israel organize; and H5) Arab urban minorities do not speak the language of national self-determination, but, rather, they protest the state policies that criminalize their neighborhoods. This dissertation utilizes three main methodological components: a) participant observation of the daily interactions between local administrators and local populations both within institutional sites and in the streets; b) oral histories with the local populations; and c) formal interviews with the in-site and out-of-site administrators. This project advances a relational approach to the effects of state spatial and legal constraints: the genesis and rationale of these policies, their local implementation, and the practices of the subject populations within their daily surroundings. It also strives to clarify the conditions under which a high level of internal organization within a poor community translates into actual collective efficacy. Broader impacts of this research include: disaggregating the category of “the subalterns” and showing how their engagement into politics is not limited to individual exit or mob-like reactions; contributing to building bridges among scholars of sociology, geography, law and post-colonial studies; and enhancing public understanding of Arab marginalized communities, which are often portrayed as violent masses.